Design and Experimentation in Computational Geometry

This project involves the dual pursuit of core theoretical investigations in computational geometry and experimentation with geometric codes. Theoretical investigations will address lower bounds, geometric sampling techniques and derandomization. Experimentation will involve the implementation of algorithms as well as the development of tools to make future implementations easier. Special emphasis will be given to problems of simplification and multiresolution of shapes in 3D, sampling and optimization, algorithm animation and experimentation tools.